NSF Young Investigator

Funds ar provided for Young Investigator Maureen Raymo to carry out research on study of deep sea cores to reconstruct the history of global climate change in the Earth's past. In particular, the PI will use carbon and oxygen stable isotope data to reconstruct history of ice volume, ocean circulation, and atmospheric CO2 changes over the last few million years. She will use these records to understand cause-and-effect linkages between major components of the Earth's climate system.